Digital Government: NSF-CNPq Collaborative Research - Issues in the Development of Spatial Spreadsheets and Browsers

EIA-9900268
Samet, Hanan
University of Maryland, College Park

Digital Government: NSF-CNPq Collaborative Research - Issues in the Development of Spatial Spreadsheets and Browsers

This proposal will develop algorithms and systems to support indexing, joining and querying of spatial data, with output as tabular data (spreadsheets) rather than rendered maps. Technologies to be explored include storage and retrieval of vector and raster data, presentation at multiple resolution layers, and querying optimization. Collaborators in Brazil for this project are Professors Jano Moreira de Souza and Claudio Esperanca.

Federal partnership will be coordinated through the Federal Geographic Data Committee; the U.S. Geological Survey will be the focus agency.